Global Analysis, Interpretation and Modelling (GAIM)

Abstract ATM-9617082 Moore, Berrien University of New Hampshire Title: Global Analysis, Interpretation and Modeling (GAIM) This award is directed toward the activities and office of the Global Analysis, Interpretation, and Modeling Task Force (GAIM) of the International Geosphere Biosphere Program (IGBP). The GAIM Office is housed in the Institute for the Study of Earth, Oceans, and Space at the University of New Hampshire. The Goal of GAIM is to advance the study of the coupled dynamics of the Earth system using as tools both data and models. The challenge to GAIM is to initiate activities that will lead to the rapid development and application of a suite of Global Prognostic Biogeochemical Models. These Global Biogeochemical Models would subsequently be linked, partly through hydrological coupling, to General Circulation Models, thereby providing models of the Earth system. In order to make progress toward its goal, the Task Force must analyze current models and data, interpret the capability of current models and experimental programs against the demands for knowledge, and the advance and synthesize our understanding of the global biogeochemical cycles and their links to the hydrological cycle and more generally to the physical-climate system as a whole. This award supports workshops, pilot modeling experiments such as inter- comparisons, and base-level support of the GAIM Task Force Office.